Acquisition of a 3D Motion Analysis System

Abstract
1
The overall objective of the proposal is to acquire a VICON 612 Motion Analysis System (MAS)
and to 1) integrate it into existing research setups of the PIs, 2) strengthen new collaborative
research among the PIs, 3) develop new measurement techniques, 4) integrate it into selected
undergraduate and graduate courses in the two departments of the PIs, and 5) make the equipment
available to other researchers at the University. A MAS uses high-resolution CMOS cameras to
capture pictures of a dynamical system when visible red digital LED strobes light up tiny retro-reflective
markers that are fixed on the system. Instantaneous three-dimensional coordinates of
each retro-reflective marker that is seen by at least two cameras are automatically calculated
using photogrammetry, and displacements, velocities, and accelerations of all makers are
available for performing dynamic animation and further signal processing for dynamics
characterization, damage detection, and control. Physically different from common point sensors
(e.g., accelerometers and proximity sensors) and profile sensors (e.g, video recorders), the MAS
offers simultaneous, non-contact, and accurate measurements of 3D coordinates of as many as
100 points on a mechanical system undergoing large motions.
This work will solve critical experimental issues and develop advanced
experimental techniques for the testing, design verification, damage detection, modeling, and
rapid prototyping of HFSs and other mechanical and aerospace systems. This work will advance
the knowledge of nonlinear statics, dynamics, control, and design of deployable/inflatable space
structures and other mechanical systems. The system will dramatically enhance
research-intensive learning environments for training engineering students in the areas of 1)
vibration testing and analysis of mechanical and aerospace systems, 2) testing and
characterization of deployable/inflatable space structures, 3) motion control of mechanical
systems, 4) design of active structures, and 5) modeling of human movement. The potential
impact of this work on the design of modern space, aerospace, mechanical, and civil systems is
expected to be very significant and broad.